CSR-EHS: Optimal, Multi-Modal Control of Complex Systems

The technological frontier and performance barrier for control and management of
many present-day engineering systems lie in their complexity. Consequently,
complexity management has become an essential part of control systems design. An
emerging approach to controlling such systems consists of a decomposition of the
control actions into a sequence of modes, each of which is defined for a
particular task, operating point, or data source. The central question is how to
schedule the various modes in order to optimize the system's performance.
Related questions concern the development of real-time algorithms for
performance improvement and the tradeoff between the size of the mode set and
the system's performance.

This project will answer the above questions by casting them in the setting of
optimal control, by combining techniques from hybrid systems, motion description
languages, and numerical optimization. This new approach to controlling complex
systems will advance the state of the art of supervisory controller design by
providing effective algorithms for off-line computation of optimal controls, and
for real-time implementation of suboptimal controls.

On the technological side, the framework for optimal timing control of
multi-modal systems has far-reaching implications in a variety of application
domains. For instance, optimal scheduling of robotic tasks can be crucial for
the success of autonomous planetary explorations, mine sweeping,
search-and-rescue applications, and other military missions. On the educational
side, a new controls curriculum will be developed at the Georgia Institute of
Technology that combines computer-science techniques with the traditional
approach to signals and systems.